Visualization Experiments for the Future in Chemical Engineering Laboratories

All existing chemical engineering laboratories are deficient in the provision of visualization experiments. Students have to conduct an experiment in the laboratory and then perform calculations before a clear understanding of the experiment is obtained. Much of the opportunity for learning in the laboratory is thus lost. This project will considerably improve the learning process by the design and implementation reaction kinetics and mass transfer. Each experiment involves the use of color changes obtained by the illumination or chemical reaction of dyes. The color change allows the student to watch the experiment (e.g., as the reaction advances) and the change can be measure by using either a spectrophotometer, interferometer or thermal imaging systems. This change is directly proportional to the extent of the reaction and quantitative results are readily obtained. The result can be taken manually or with data acquisition systems. Experiments in liquid Extraction, control and kinetics in plug flow and continuous stirred tank reactors, visualization of flow around tubes, bends and fittings, heat exchangers and the temperature profiles in a glass distillation column are conducted. Each experiment employs the latest advances in flowmeters, pressures transducers and other instrumentation.